Application of Random Matrix Theory and Scaling Concepts to Disordered Conductors and Dynamical Systems

The research will focus on a novel approach to two types of complex systems: disordered quantum conductors and classical dynamical systems with many degrees of freedom. The unifying themes for this work are two: (1) Both types of systems will exhibit fluctuation behavior characteristic of the well-known random matrix ensembles of Wigner and Dyson, and (2) Both types of systmes will exhibit universal finite-size scaling behavior of the type familiar from critical phenomena. Recent work has shown the connection between universal conductance fluctuations in normal metals and random matrix theory. Random matrix theory provides a new theoretical approach to quantum transport theory. For classical dynamical sytems, the application of these concepts are quite novel and may have far-reaching implications.